Percolation Theory, Fracture Mechanics, and Magma/Hydrothermal Processes at Ocean Ridge Crests

This project will model several aspects of magmatic and hydrothermal activities at the mid-oceanic ridges by application of percolation theory. An important question the P.I.s will address is the longevity of hydrothermal vents. They will also their model for phreatic eruptions on land to megaplume formation at the ridges.